Support of "Third International Symposium on Density- Stratified Flows" February 3-5, 1987 - California Institute of Technology - Pasadena, California

This project provides partial support of the Third International Symposium on Density Stratified Flow. Density stratified flows occur in a very broad range of flow situations, from hydraulics to oceanography and meteorology, whose complexity makes predictions and analysis very difficult. A symposium to assess the current international state of the art is planned.